Biophysics and Genetics of Viral DNA Packaging

Serwer 9316660 By use of a model system that has several advantageous properties, we purpose to investigate the changes in structure that occur when multimolecular nucleoprotein complexes accomplish a biological task. The model system consists of the components required during the packaging of double-standard DNA in the DNA-free procapsid of bacteriophage T7. The advantageous properties include accessibility to two of our recently-developed procedures of analysis: isolation of capsids that have incompletely packaged DNA and high performance production of mutants that have an altered DNA packaging pathway. The long-range objective is to obtain a complete physical description of a biologically-evolved process; that is, we are exploring the interface of biology and physical chemistry. The short-range objectives are the following: (a) Characterization will be performed of both the DNA and capsid components of capsids that have incompletely packaged DNA. Structural analysis will be performed by use of the following: chemical probes for structure, ultraviolet light-induced DNA-DNA and DNA-protein cross-linking, one-oligonucleotide probes, analytical ultracentrifiguration, electron microscopy and Raman scattering. (b) To assist in accomplishing the first short-range objective, isolation will be performed of T7 mutants that have an altered studies of static viral structure for developing both a fundamental understanding of structural dynamics and a new approach to antiviral strategies. Our studies of genetics will provide a state of the art analysis of the control of morphogenesis by genes. This proposal is interdisciplinary. %%% Biological processes have always been too complex to describe completely in terms of the concepts of physics and chemistry. By use of a model biological system that has several advantageous properties, we propose to obtain a relatively complete chemical and physical description of a biological process. The biological process is the packaging of a double-stranded DNA molecule in the outer shell of a bacterial virus; the DNA is packaged in a space that has a volume twice that of the DNA. By use of our newly- developed technique for both determination of structure and isolation of capsids with incompletely packaged DNA, we will determine the structural changes that occur during DNA packaging. This approach complements studies in which only the structure of the completed virus is studied. The product of work is both improved understanding of changes in structure during formation of viruses and new approaches to developing antiviral strategies. ***